Mathematical Sciences: Homotopy Theory at Large Primes

Professor Anick intends to extend his resarch in rational homotopy theory to the study of homotopy theory at large primes. The principal methods will be the use of H-spaces and exponents (Cohen-Moore-Neisendorfer, Gray, Selick); algebraic models for spaces (Dwyer, Felix-Halperin, Quillen); and V1-homotopy (Mahowald, R. Thompson). Homotopy thoery is one of the standard algebraic techniques for dealing with geometric questions. Typically one starts with such a question, translates it into its algebraic counterpart, calculates concerning the algebra which has been introduced, and then translates the results back into the language of geometry. None of these steps has a cookbook recipe, of course, but this is often the type of argument one attempts to construct.